Inelastic Light Scattering Studies of Kondo Insulators and Other Low Carrier Density Kondo Systems

w:\awards\awards96\num.doc 9700716 Cooper This experimental research project focuses on inelastic light (Raman and Brillouin) scattering studies of the electronic, magnetic, and vibrational excitations of Kondo insulators and related low carrier density Kondo systems. The symmetry, anisotropy, and temperature dependencies of spin and charge excitations will be studied to elucidate the unconventional ground and low-lying excited states of Kondo insulators. Studies of the magnetic field and pressure dependencies of the charge and spin excitations will be performed. Finally, studies of the phonon anomalies in Kondo insulators will be carried out to clarify the nature of the strong interaction between charge and phonon degrees of freedom. %%% This research project involves experimental light scattering measurements from "Kondo insulators", a poorly understood class of insulators containing rare earth and actinide elements. These compounds display unusual magnetic and electrical properties, believed to be due to the interaction between tightly bound electrons on the heavy rare earth or actinide elements, and the outer shell electrons from the lighter elements. It is desirable to carefully measure the novel behavior, and, ultimately, to extend the theory of crystalline solids to cover these cases. If this is done the theory can be more confidently applied to the wider range of solids which includes semiconductors, metals and others, which find wide application in technology. Results from this research may include unusual new effects or materials which may find new application in technology. This research project is interdisciplinary in nature and involves both graduate and postgraduate students who will be excellently trained to enter positions in industry, government or education. ***